Connection of Shoreline Community College to NSFNET

9312223 Clowers This award connects Shoreline Community College to NSFNET through a Washington state community college computer consortium. Faculty and students at the institution will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years. ***